Optical Matched Filter Detection for Fiber-Optic Communication

Proposal Number: ECS-9804336 Principal Investigator: Stephen D. Fantone Title: Organization of Workshop on Novel Solitons and Nonlinear Periodic Structures Abstract This is a proposal requesting support for student travel for the Workshop on Novel Solitons and Nonlinear Periodic Structures to be held in Victoria, British Columbia, Canada , March 30-April 3, 1998. The workshop is intended to be an international forum for young scientist in the rapidly expanding field of optics and material sciences.